NSF-MARGINS Seismogenic Zone Theoretical Earth Institute

This proposal requests support for an international conference on seismogenic zone studies that are being done under the auspices of the NSF MARGINS program. The last workshop on this topic was held in 1997. Since that time a number of studies have been conducted that have developed new and important information on the factors that influence the distribution, timing, magnitude, and mechanisms for earthquakes. The purpose of the workshop will be to foster exchange of information and results between researchers and students and provide a venue for developing plans for cross-disciplinary work in the future.